MRI: Collaborative Research: Development of the Detector Package for the Super HMS in Hall C at JLab

This award supports the development of the detector package for the Hall-C SHMS spectrometer by the Hall C @ 12 GeV Consortium, a group of physicists at Hampton University, James Madison University, North Carolina A&T State University, and the College of William & Mary. The consortium will develop and construct the basic detector package for a new magnetic spectrometer to be built at Jefferson Lab. This instrument, the super high momentum spectrometer (SHMS), will become part of the new base equipment for Jefferson Lab's Hall C after the upgrade of the CEBAF accelerator to 12 GeV beam energy. The consortium's scientific objective is the study of QCD, the theory of the strong nuclear force, in an energy regime bridging the degrees of freedom observed in low-energy phenomenology (mesons and nucleons) and the QCD Lagrangian (current quarks and gluons).